Topics in Model Theory

Laskowski is continuing his research into model theory. In the
first set of problems he investigates several distinct combinatorial
situations that arise in different contexts, including recursive
model theory and classification theory. In each of these situations
a definable group is known to be present as well as an action of the
group on the combinatorial configuration. Laskowski will continue
his investigations into what specific properties such a group must
possess. As the group is acting on the configuration, such results
would immediately yield restrictions on the complexity of the
configuration. In many different settings, Laskowski has been able
to apply some of the tools from Descriptive Set Theory to answer
questions in model theory, primarily for theories in a countable
language. Recent developments give him hope that the Main Gap for
omega1-saturated models is within reach. A third problem is to
continue his investigations into the algebraic underpinnings of
various fuzzy logics. Specifically, he is aiming for a sharp bound
on the computational complexity of determining which sentences are
logically valid in various fuzzy logic systems. By building on previous
results, this question is cast in terms of various embedding questions
between certain ordered abelian semigroups.

Model theory is concerned with the interplay between theories (i.e.,
sets of sentences in a very formal language) and classes of algebraic
structures (models). As one strengthens the theory, the class of models
of the theory decreases. In particular, some theories are strong enough
to obviate specific configurations from appearing in any model of the theory.
Much of Laskowski's prior research to date, as well as much of the proposed
research, concerns understanding the mechanisms by which this elimination can
occur. Fuzzy logics have been useful in computer science and operations
research for some time, but only recently have significant attempts been
made to provide a firm mathematical basis for them. Laskowski and his
graduate students have recently made progress in this regard, and the
investigator will continue working in this area.